Plastic Deformation of Analogne Materials of Deep Mantle Minerals

The goal of the present work is to better understand the structure-plasticity correlation in high-temperature deformation in materials with crystal structures relevant to the Earth's deep interior. The PI will conduct extensive studies on deformation properties on both single and polycrystals of materials with perovskite and garnet structures. The primary purposes of this series of studies are to determine the constitutive relations (creep laws and deformation mechanism maps) and to study the microscopic mechanism(s) of deformation to understand the origin of correlation between plasticity and structure. A wide range of experimental techniques will be employed to achieve this goal.